International Workshop on Mathematics and Science Education: Common Priorities that Promote Collaborative Research

ABSTRACT - Miller 0751664

This award provides $99,990 over 12 months for a workshop entitled: International Workshop in Mathematics and Science Education: Common Priorities that Promote Collaborative Research, to be held in Murfreesboro, Tennessee on the campus of Middle Tennessee State University (MTSU), June 22-27, 2008. The U.S. PI is Dr. Diane Miller, Professor of Mathematical Sciences, MTSU. The counterpart organizer is Dr. DENG, Hualing, Vice President, Northwest Normal University (NWNU), Lanzhou, China.

The goal of the workshop is to advance the construction of new knowledge through international cooperation with Chinese counterparts in the teaching and learning of math and science at the elementary level in four areas: Curriculum Design and Assessment; Teacher Preparation and Professional Development; Effective use of IT; and Reaching Gifted and Underserved populations. Approximately 120 people will attend the workshop including 50 senior U.S. researchers, 25 early career researchers, 15 graduate students and 5 undergraduates. Northwest Normal University will send 25 participants.